Interannual - to Millennial-scale Environmental Variability as Recorded in the Laminated Sediments of the Carraco Basin,Venezuela

Using cores collected in the Cariaco Basin (Venezuela) in 1990, proposed analyses will focus on interannual and millennial- scale variability in upwelling, regional wind strength, and the hydrological balance in northern South America over the last 20-30 thousand years. Of particular interest will be decadal records over the Little Ice Age and the Younger Dryas Event. Comparison of varve and 14-C chronologies will provide the much-needed independent record of secular 14-C variations through the last deglaciation.